PYI: Design and Analysis of Algorithms

Professor Goldberg's primary research interests can be divided into two interrelated areas: algorithms and parallel distributed computation. The purpose of Professor Goldberg's research in the first area is to develop more efficient algorithms for problems that arise in practice. such improved algorithms reduce computational requirements for the corresponding applications and may allow computerized solutions of problems that are infeasible to solve on a computer using previous algorithms. Professor Goldberg studies sequential as well as parallel and distributed algorithms. He is also interested in implementation and experimental evaluation of algorithms. Parallel processing is being recognized as one of the most promising ways to wider the class of problems that are feasible to solve by computers. Massively parallel machines are now available commercially. Taking advantage of parallelism, however, often requires special methods. Professor Goldberg is interested in designing efficient parallel and distributee algorithms for computation-intensive problems. In addition to design of parallel and distributed algorithms for specific problems, he is interested in general techniques for developing parallel and distributed algorithms. He also studies the features of parallel architectures and distributed systems which facilitate efficient implementations of algorithms.